Seaborg Summer Science Academy

The Seaborg Summer Science Academy is a two-week, residential intensive program of instruction in science and mathematics for high school students with demonstrated high ability or potential. It is designed to serve 40 participants who are entering the 11th or 12th grades, with a few highly qualified 10th graders also possibly included. The target audience consists primarily of students from isolated rural areas in Michigan's vast Upper Peninsula. The Upper Peninsula's Native American community will be a particular target for recruitment. The Academy participants will take a core course in Problem Solving in Mathematics and Science. In this course, they will develop and refine skills in handling challenging problems while working together in teams. Students will also select two science elective courses and two in mathematics. The Academy will be held July 17-30, 1988. This will be the second year for the Academy, and the sixth summer that the problem solving course has been offered.